NSF Minority Postdoctoral Research Fellowship for FY-1999

This action funds and NSF Minority Postdoctoral Research Fellowship for 1999.

The research and training plan is in the area of biochemistry and is entitled " Transcriptional regulation of endonuclease V in E. coli." In the presence of a common environmental mutagen (nitrous acid) the nfi gene in E. coli turns on the production of the DNA repair enzyme endonuclease V which in turn repairs mistakes in DNA. This work will investigate the regulation of nfi and lay the groundwork for studies on other regulatory pathways for the nfi gene, the control of genes other than nfi belonging to the same regulon, and other regulatory pathways.